Laser-Initiated Polymerization

The basic premise for this research is two-fold: first, to exploit the full capabilities of laser-initiated polymerization as a critical and novel method for probing the kinetics and mechanisms of photopolymerization processes under a variety of conditions for a number of different types of monomer systems; and, second, to establish a rationale for defining the operating parameter for laser-initiated polymerization applications for such applications as imaging, curing of coatings for optical fibers, microcircuit processing, etc. The importance of the rapidly developing laser-initiated polymerization field and its potential for use in American industry cannot be minimized. We will continue to investigate the basics of polymerization kinetics of simple monofunctional monomers in bulk and solution, while placing special emphasis on laser-initiated of multifunctional/crosslinking monomers and polymerization of liquid-crystalline systems. In addition, we propose to investigate the laser-initiated of other polymerization types including templated systems, cationic-initiated polymerizations, and microemulsions in an effort to provide a fundamental kinetic analysis for these systems.